CISE Experimental Software Systems: Scaleable Visualizations to Improve and Measure Comprehensibility of Software Systems: A Framework for Evaluation

9806777 Cross, James H. Hendrix, T. Dean Auburn University Experimental Software Systems: Scaleable Visualizations to Improve and Measure Comprehensibility of Software Systems: A Framework for Evaluation Software visualization is an active area of research that investigates efficient and effective ways of automatically producing graphical representations of program source code, algorithms, or the runtime behavior of software. The investigators have designed and implemented a set of new scaleable graphical representations which specifically addresses problems with other static visualizations reported in the literature. This research focuses on the experimental evaluation and refinement of this set of scaleable visualizations in the context of GRASP, a prototype best-practices software engineering tool. This research also investigates the manner in which software visualizations are used in practice by software professionals. Partners from government and industry are cooperating with the investigators to provide access to production software systems for experiments and case studies. The impact of this research on the software engineering community will include (1) providing a experimental software support system which provides seamless support for an integrated set of visualizations, (2) providing empirical evidence that directly addresses the open question of the relative effectiveness of visualizations on production software, and (3) stimulating organizations to modify their software development processes to include visualizations based on those experimental results which indicate the potential for substantial improvements both in technical and economic terms.